CPSWEEK: A Conference Cluster on Cyber-Physical Systems

This award supports the organization of CPSWEEK-Cyber Physical Systems Week, the first instantiation of a conference cluster that brings together three previously separate conferences under the banner of Cyber-Physical Systems. The constituent conferences are: Hybrid Systems - Computation and Control (HSCC), the Real-Time and Embedded Technology and Applications Symposium (RTAS), and Information Processing in Sensor Networks (IPSN). CPSWEEK is held in St Louis from April 21 to April 24, 2008. NSF funding supports student participation in the conferences and the associated workshops and poster sessions.